Condensed Matter Theory

0087133
Givin
This grant provides support for theoretical research on condensed matter physics. The main objective of the work is to enhance our understanding of novel electronic phenomena in condensed matter systems. The research includes investigations of the quantum and statistical mechanics of various quantum phases of matter including superfluidity in bilayer quantum Hall systems, quantum coherence in mesoscopic devices, quantum magnetism, and high-temperature superconductors. Analytical, as well as quantum and classical Monte Carlo and other numerical, techniques will be applied to the study of these phenomena.
%%%
This grant provides support for theoretical research on condensed matter physics. The main objective of the work is to enhance our understanding of novel electronic phenomena in condensed matter systems. A combination of analytical and computational techniques will be used to study these novel systems.
***